Collaborative Research: Accelerating KamLAND2-Zen's Search for Majorana Neutrino with Hardware AI Codesign

One of the most profound unanswered questions in physics is why the present-day universe is composed almost entirely of matter, even though matter and antimatter are thought to have been created in nearly equal amounts after the Big Bang. The answer may lie in the properties of neutrinos, the lightest and most elusive of the known fundamental particles. A rare hypothetical nuclear process called neutrinoless double-beta decay could reveal whether the neutrino is its own antiparticle, providing insight into the origin of neutrino mass and the cosmic asymmetry between matter and antimatter. With this award, the University of Hawai‘i group will develop real-time artificial-intelligence/machine-learning (AI/ML) algorithms that allow the KamLAND2-Zen detector to identify important physics events more efficiently while rejecting background signals. The same hardware–AI codesign methods will have broad applications in particle and nuclear experiments that require fast, intelligent decisions from large detector data streams. The project will also train a new generation of “data physicists” who combine deep physics knowledge with modern AI skills. The laboratory system built under this award will serve as a real-time AI platform for student research and education in an EPSCoR jurisdiction.

KamLAND2-Zen, an upgraded experiment scheduled to begin data taking in 2027, searches for
neutrinoless double-beta decay of Xe-136 using a xenon-loaded liquid scintillator read out by photomultiplier tubes (PMTs). Its new data-acquisition system pairs Radio-Frequency System-on-Chip (RFSoC) devices for PMT waveform digitization with a Multi-Processor System-on-Chip (MPSoC) for trigger-level decisions. The University of Hawai‘i group will deploy AI/ML inference directly on these devices, using the RFSoCs for real-time extraction of photon hit times and charge across all PMT channels at very low latency, and using the MPSoC for low-latency vertex and energy reconstruction. These capabilities will enable real-time, position-aware trigger decisions and are expected to lower the per-channel hit threshold relative to KamLAND-Zen, reducing the effective energy threshold in the xenon-loaded region and improving the identification of spallation neutrons and short-lived isotopes associated with dominant spallation backgrounds. By relocating sophisticated reconstruction from offline analysis to the detector front end, the work represents a methodological advance over traditional threshold-based triggering and will measurably enhance KamLAND2-Zen’s sensitivity to neutrinoless double-beta decay. The laboratory hardware–AI codesign testbed established under the award will provide reusable infrastructure for embedded-machine-learning designs across neutrino and dark matter experiments.